Setting a Research Agenda: Parents as Informal Math Educators -- A Conference to be Held in Washington, DC, May/June, 2001

The "Setting A Research Agenda: Parents as Informal Mathematics Educators" conference will convene parents, researchers in parent/child learning, a methodological/research design expert, a developmental psychologist, and representatives from mathematics professional organizations. The goals of the conference include: 1) summarizing the goals, methods and findings of the leading research in parent/child mathematics learning; 2) establishing the agenda for future research in this area; and 3) charting a short- and long-term plan of action to accomplish these research goals.